SCI: SGER: Application Directed Surface Parameterization

This SGER builds off previous NSF-funded work in developing new algorithms for graphics processors (GPUs) in areas such as ray tracing, matrix multiplication, radiosity and radiative heat transfer, subsurface scattering, radiance transfer, clustering, scene graph processing, and dynamic adaptive surface sampling. Advances in these areas allow the PI to propose focused exploration in goal-directed parameterization and investigate optimization methods for mapping meshed surfaces to a planar domain based on new metrics. Specifically, work is proposed to extend the current support for dynamic multiresolution meshed atlas to include capability to deal with moving surface domains in an interactive model context with no loss of detail. That work is balanced with the aforementioned work in developing application-driven metrics.